Synthetic Studies on Deoxy Sugar Oligosaccharide Glycopeptide Antibiotics.

Dr. Clay S. Bennett of Tufts University is studying methods for the synthesis of a class of molecules called deoxy sugar oligosaccharide glycopeptides. These molecules possess both potent biological activity and highly unprecedented chemical structures. To take advantage of the potential that these molecules, or derivatives thereof, have as next generation biotechnology tools, it is necessary to develop efficient synthetic methods to make them. Professor Bennett is developing new chemical technologies that will permit the first total synthesis of this class of molecules. His lab is also studying how the reactions used for these syntheses work, so they can be applied to the construction of other classes of compounds. Consequently, these studies will advance domestic capabilities in biotechnology and biomanufacturing. The results of this research will also contribute to innovation in all areas of activity that requires carbohydrate synthesis, including the agricultural, advanced manufacturing, chemical, and pharmaceutical industries, and the biological, biotechnology, and chemical research communities. This project provides excellent training in synthetic and bioorganic chemistry for undergraduate and graduate students. This project also involves outreach activities to high school chemistry students to help inspire the next-generation biotechnology workforce.

Professor Bennett’s approach involves assembling the oligosaccharide chains of the target molecules through selective activation of deoxy sugar hemiacetals, thioglycosides, and tert-butyldimethylsilyl glycosides (TBS glycosides). Activating hemiacetals using either sulfonyl chlorides under basic conditions or using diarylcyclopropen-1-thiones and oxalyl bromide affords glycosylation products with very high levels of selectivity. Similarly, the TBS glycosides and thioglycosides can be activated with Lewis acids or under oxidative conditions, respectively, to react with nucleophiles stereoselectively. Importantly, data shows that these chemistries are complementary to each other. While one method can create one isomer of a glycosidic linkage, the alternative methods can create the diastereomer. By studying these different chemistries and their mechanisms, the Bennett lab will create a set of guidelines to use for deoxy oligosaccharide synthesis. By developing methods for the direct conjugation of deoxy sugar oligosaccharides to resin bound peptides, these studies will lead to the first total synthesis of saarvienin A and the dracomicins A and B. The outreach portion of this program will provide high school students with a hands-on experience with modern organic chemistry and demonstrate how it impacts our daily lives.